Characterization of the Role of the Par Proteins in Signaling Pathways that Regulate Cell Integrity in Yeast

Abstract 9604108 Ballester Technical This proposal is studying proteins which are important in maintaining the integrity of the cell wall of the yeast Saccharomyces cerevisiae. The cell wall is responsible for the morphology of the yeast, its mechanical strength and selective uptake of molecules. Its composition and structure changes during the cell cycle and in response to environmental signals. The cell wall integrity pathway is required for cell wall biosynthesis, and it is composed of Rho1p, protein kinase C and a MAP kinase cascade of serine/threonine protein kinases. This investigator has identified a family of plasma membrane associated proteins - Par7p, Par 15p, and Par 18p that function upstream of protein kinase C. Association with the plasma membrane and sequence characteristics of Par suggest that these proteins act as receptor molecules required for the activation of the cell integrity pathway. This grant aims to characterize the role of the Par proteins in the regulation of the cell integrity pathway. Other genes in yeast with a functional relation to PAR will be identified, and the component of the pathway that they regulate will be determined. This will be done by characterization of extragenic mutations and high copy suppressors of the lysis defect of a par mutant strain. These studies will also determine whether Par 8, a protein with homology to the Pars, is a new member of the PAR family. This will be established by deletion analysis of the PAR8 gene and complementation of the phenotypes of the par mutant to test its functional relation to the cell integrity pathway. These studies will be important in understanding how yeast is able to maintain its cell wall during during normal cell growth and in response to its environment. Non-Technical This proposal is studying the role of a new family of plasma membrane associated proteins that are required for maintaining the integrity of the yeast cell. The regulatory p athways affected by these proteins will be identified. ***